Research Careers for Minority Scholar in Condensed Matter Physics

Oklahoma State University will establish a Research Careers for Minority Scholars project to increase the representation of Blacks, American Indians, and Hispanics in the field of Condensed Matter Physics. The project will consist of three mutually supporting phases. (1) An undergraduate research internship for students in the summer between their Junior and Senior years. This will introduce them to the excitement of a research career on the forefront of knowledge. (2) A "bridging summer" immediately following their completion of the baccalaureate degree to provide a continuous path from undergraduate to graduate study, continue their involvement in research, and give them a head start toward completion of a thesis problem. This continuity is important since many U.S. students are lost to research careers because they enter the job market at the B.S. level. (3) Support for their first year of graduate study including opportunities for them to serve as role models for minority undergraduates. The project will emphasize research in the properties of optical materials, an area with great industrial, as well as academic, interest. Oklahoma State University is one of the leading American research centers in optical materials. All phases of the program will provide, through attendance at scientific conferences and colloquia, the opportunity to interact with the larger scientific community as well as OSU faculty, staff and students. This will aid the Minority Scholars in building their network within the physics community that is so important in becoming successful and productive research physicists. Over the five years covered by this proposal the program will approximately double the number of students from the targeted groups who are preparing for research careers in Condensed Matter Physics.